25th International Symposium on Combustion

Abstract -- CTS-9404607 Sawyer The combustion Institute holds biennial international meetings for presentation of the latest experimental and theoretical results across the spectrum of Combustion Science and Engineering. The 1994 meeting will be held on July 31 - August 5, 1994 at the University of California, Irvine. The Combustion Institute encourages outstanding scientists and engineers to participate in the symposium and assists young investigators in attending. This has maintained a higher level of activity and interest in combustion than would have otherwise existed. The Symposium proceedings will be published; funds are being supplied to help offset these costs.